REU: Stable Isotopic Applications to Great Plains Ecology, Paleoecology, and Archeology

This is a Research Experiences for fUndergraduates project. It provides research experiences for eight students at Augustana College. Students will participate in projects involving prairie ecology and paleoecology.